SHF: Small: Single Assignment Architecture / Single Assignment Compiler

Today, practically all processors employ instruction set architectures which are functionally
equivalent to each other. Compiler/micro-architecture cooperation using these traditional
representations has already reached the point of diminishing returns. This project therefore
investigates the domain of single assignment program representations and direct support of this
domain through micro-architecture implementation as a key concept that can break the barriers
between the compilers and architectures. If successful, this new approach can have a significant
impact on the design of future processors, design of compiler internal representations as well as
the back-end of the compilers. It can also affect how parallelism is exploited at various
granularities and how various optimizations are carried out. The investigated framework can help
revitalize computer architecture and compiler optimization research by opening up unexplored paths
for research in high-performance systems. Consequently, it can affect every field of science and
commerce which rely on high-performance computation.

Compiler/hardware integration around the concept of single-assignment form has many benefits
spanning three fields. First, in the area of process synchronization it provides the opportunity to
eliminate the need for explicit synchronization. Second, in the field of micro-architecture renaming
of instruction streams becomes substantially simpler, micro-architectures can become loop-aware,
renamed instruction streams can be re-renamed and compiler techniques such as partial redundancy
elimination or constant propagation can dynamically be performed by the micro-architecture.
Finally, the compilers can focus on what they do best by sharing a common representation with the
micro-architecture. As a result, many key optimizations can be efficiently performed. Within
this paradigm, it becomes possible to develop new optimization algorithms which will rely on the
micro-architecture to perform the optimization using analysis performed by the compilers.